U.S.-China Cooperative Research: Isotopic Evidence for Late Cenozoic Ecosystem and Climate Changes in Southwest China

Wang
0002649

This is a one-year cooperative proposal between Dr. Yang WANG of Florida State University, and Drs. Junshe DONG and Tao DENG of the Institute of Vertebrate Paleontology and Paleoanthropology, Chinese Academy of Science. This project is proposed by an U.S. woman scientist at an early stage in her career. This project involves the study of isotopic evidence for late Cenozoic ecosystem and climate changes in Southwest China. Dr. Wang is the first person to apply carbon and oxygen isotope analysis to paleo-material originating from China. This study can provide important data to reduce considerable uncertainty about the evolution of ecosystems and environments in China in the past 10 million years. The Chinese Academy of Science, the Natural Science Foundation of China and the NSF jointly support this project.